Quantum Information Processing Using Nanocrystal-Microsphere Systems

A composite quantum-dot (QD) microcavity consisting of semiconductor nanocrystals coupling
to a high-Q whispering gallery mode (WGM) of a fused silica microsphere is proposed. This novel
microcavity combines unique properties of a fused silica microsphere with 3D electronic confinement in
high quality QDs and features a Q-factor exceeding 108, four orders of magnitude greater than that of
other existing semiconductor microcavities. The proposed system allows fabrication, selection, and
assembling of individual electronic and photonic components.

The nanocrystal-microsphere system can be used to implement quantum logic gates of Cirac-Zoller
type. The ground state and a metastable excited state of the nanocrystal are used as a qubit. An
auxiliary dipole transition is used for two-qubit operations. Coherent interactions between qubits are
mediated by a photon in a high-Q WGM and through coherent photon exchange between two
nanocrystals. Quantum confined Stark effects are used to tune a given nanocrystal on- and off-resonance
with the WGM and to control the coherent photon exchange process.

Research efforts in this program are aimed at developing experimental approaches to covalently
attach an array of nanocrystals to the equator of a fused silica microsphere and at achieving coherent
photon exchange between a nanocrystal and a resonant WGM, two most important steps toward
implementing the proposed quantum logic gate. New experimental techniques will also be developed to
investigate decoherence processes in single nanocrystals.

To attach an array of nanocrystals to the equator of a fused silica microsphere, the nanocrystals
will be covalently linked (chemisorbed) to the sphere surface by exploiting the well-developed surface
chemistry of silica and precedented ligand exchange chemistry. The two primary means to be used for
chemisorption will be peptide bond formation and ligand exchange with surface bound thiols. For a more
precise control of nanocrystal positions, microcontact printing will be used to achieve localized surface
derivatization. As an alternative, micro-manipulation of nanocrystals by using an atomic force
microscope will also be pursued.

To achieve strong dipole coupling and the resulting coherent photon exchange between a
nanocrystal and a resonant WGM, a nanocrystal-microsphere system where a high-Q WGM couples
resonantly to a single nanocrystal will be used. Experimental studies will be carried out by using optical
transitions with the smallest g and the largest ratio of grad / g where g and grad are the total decoherence
rate and the radiative decoherence rate of nanocrystals, respectively.

A new spectroscopic technique that takes advantage of the extreme sensitivity of a high-Q WGM
to absorption or emission from a single nanocrystal will be developed to measure absorption and
excitation spectra of a single nanocrystal. Stimulated photon echoes will also be used to obtain
information on both decoherence and population relaxation of nanocrystals and especially on pure-dephasing associated with acoustic phonon side bands. Combining results obtained from the single
nanocrystal and the ensemble-average photon echo investigations will enable us to identify optical
transitions with the smallest g and the largest ratio of grad / g . These studies should also lead to much-needed understanding of decoherence processes in nanocrystals.

In addition to accomplishing two most important steps toward realizing quantum logic gates in a
QD system, the proposed research should lead to identification of important issues, both technological
and fundamental, in quantum information devices using a QD system. The achievement of the strong
coupling regime for a single QD will open up a new frontier of semiconductor quantum optics and will
make possible devices such as optical switching at the level of a single photon and microlasers at the level
of a single QD. The understanding of decoherence processes in nanocrystals should also be important to
any quantum computing scheme that uses semiconductor nanocrystals or more generally QDs.